Late-Glacial and Early-Holocene Climatic Anomalies in Southwestern Bulgaria

This award is to support research that will develop new data on the effect of changing climate on the climatically sensitive upper forest limit in the Pirin Mountains.

Fieldwork will be undertaken to collect samples from a series of cirque lakes near the upper forest limit in the Pirin Mountains. Plant macrofossil data and radiocarbon dating will supplement pollen data already in hand. In addition, stable isotope analysis of carbonate in lake sediments will be used as an independent method of climate reconstruction.

The broader impacts of this proposed research are that it will lead to a better understanding of the vegetational and climatic history of an area that is transitional between Western Europe and the continental interior.